CREST-Cyber-ShARE Center of Excellence: A Center for the Sharing of Cyber-Resource to Advance Science and Education

The Cyber-ShARE Center will bring together experts in computer science, computational mathematics, education, earth science, and environmental science to address the challenge of providing information to scientists and other users of cyber-infrastructure (CI) that allows them to make informed decisions about the resources that they retrieve and to have confidence in using results from CI-based applications. The Cyber-ShARE team will conduct innovative research to facilitate the development of CI-based applications and increase their use by scientists by enhancing CI results with provenance information, trust recommendations, and uncertainty levels (areas that are recognized as essential for the success of CI); by creating scientist-centered tools and artifacts; and by contributing CI resources to appropriate CI portals. In addition, the synergistic and multi-disciplinary subprojects will advance knowledge in i) provenance to capture knowledge about uncertainty and trust using results from discipline experts; ii) the physical properties of the Earth by studying CI-based techniques and approaches for integrating data with varying accuracy and sensitivity; iii) optimization of data streams and sensor arrays in ecological and environmental networks by targeting improved characterization of environmental phenomena and processes.